CyberCorps: SFS: Hampton University Graduate Education and Training Scholarship in Information Assurance (HU GETS-IA) Program

As part of a new CyberCorps: Scholarship for Service program, the Information Assurance Center at Hampton University through the Hampton University Graduate Education and Training Scholarships in Information Assurance (HU GETS-IA) program is supporting at least 19 students to earn Masters of Science degree in Information Assurance.

This project enhances underrepresented minority and women students' understanding of Information Assurance to prepare them for the nation's workforce at a more competitive level; and significantly expands the department Information Assurance research capacity and teaching experience by offering a rigorous cybersecurity course curriculum coupled with mentorship and required professional development activities to the student population.

A unique feature of this program is that students are serving as program ambassadors at high school recruiting events and are mentoring K-12 students in the Virginia Junior Academy of Science. Additionally, students are participating in the Hampton University annual Information Assurance Symposium and the annual Association of Computer/Information Sciences and Engineering Departments at Minority Institutions (ADMI) Symposium. HU works with its partners, Spelman College, Winston Salem State University, Elizabeth State University and other HBCU institutions, to recruit highly-qualified computing students with interest in cybersecurity into HU GETS-IA program.